TEAMS III - Small Museum Exhibit Collaborative

TEAMS, an exhibit collaborative of seven small science museums, will collaborate with academic researchers to expand knowledge about learning in informal science environments and will apply that knowledge to the creation of eight (two copies of four topics) traveling science exhibitions suitable for small museums and science centers. The research investigations build on recent findings about the nature of socio-cultural learning in museums. This close working collaboration among researchers, museum evaluators and museum exhibition designers provides an innovative opportunity to examine a model for rapid transfer of research knowledge into museum practice. Through this collaborative effort the project builds capacity within the seven small museums, helping address the larger problem of under-served audiences in rural areas. One component of the research supports design guidelines to increase effectiveness for girls visiting STEM exhibitions.